Studies of Baroclinic Ocean Circulation

Several fundamental aspects of the ways in which potential vorticity
is injected into the large-scale ocean circulation are investigated.
The three main tasks are: a study of the injection of potential
vorticity into the ocean interior from sloping side boundaries, the
development of a better understanding of the processes that determine
the structures of subpolar gyres, and a study of the process of
subduction of potential vorticity from the ocean mixed layer in the
presence of strong separated boundary currents and a mesoscale eddy
field.